Undergraduate Laboratories in Control Systems

The principal goal of this project is to develop a novel and unique undergraduate laboratory in control system. The laboratory provides hands-on experience in the various steps of control systems design, aids students in visualizing the abstract concepts covered in a control system course, introduces students to the practical aspects of design, and provides an avenue to synthesize theoretical materials developed in a lecture. This project is setting up a computer-controlled control system design laboratory to support undergraduate courses and design efforts. The laboratory includes four novel design experiments, specifically designed to stimulate the students and to demonstrate the practical and analytical issues in control system design and development. The project is using this "hands-on" integrated capability to provide a complete design and analysis experience. This includes model development and verification, model simulation, control design, system implementation, and verification of performance objectives. Modifications to original designs can be included and parameters can be fine tuned. Students are confronted with design and analysis activities similar to those faced by engineers in industry.